1988 Southeastern Regional Developmental Biology Conference May 6-8, 1988, Beaufort, NC

Partial support is requested to help defray room and board expenses for graduate students attending the Southeastern Regional Developmental Biology Conference to be held at Duke University on May 6-8, 1988. The session topics will be: I. Molecular Approaches to Early Development II. Developmental Biology of Plants III. Development of Synapse: Cellular and Molecular Mechanisms IV. Response to Injury and Regeneration of CNS Neurons V. Regulation of Globin Genes during Development and Differentiation VI. Posters The purpose of the regional meetings is to bring together scientists working in the south east in an informal atmosphere. These meetings provide an opportunity for graduate students, post doctoral fellows and senior researchers to meet and exchange information in a small manageable group. The meetings therefore provide a valuable training function for the junior members.